CAREER: Value and Memory Access Profiling for Compiler Optimization

Profile feedback optimizations have been shown to improve program performance for several compiler research areas. The main profiling information used to guide most of these optimizations are basic block and control flow edge frequencies. This is actually only a small fraction of the profile information that could be gathered and used for compiler optimizations. This proposal focuses on two relatively new areas of profile feedback optimizations. The first area will investigate gathering value profiles, which keep track of the top values for instructions and variables found during execution. This information is then used to guide value-based code specialization, which can significantly reduce the number of executed instructions. The second profiling area deals with memory access profiles. Memory access profiles will be used to guide a new optimization procedure called Cache-Conscious Data Placement, as well as to guide speculative instruction scheduling. Cache-conscious data placement uses a temporal relationship memory profile to determine at compile- time where to place stack, global, heap, and constant objects in the cache. This can potentially result in a significant reduction in the data cache miss rate. In addition to the performance benefits from these optimizations, this research will investigate fast and efficient approaches for gathering the profile information.